REU: Ecosystems Studies at the H.J.Andrews Experimental Forest

This award provides funds to the Biology Department at Oregon State University for a ten-week program that will provide ten undergraduates in biological sciences with research experiences in ecosystem studies at the Andrews Experimental Forest. This is a site which involves several interdisciplinary projects, including the NSF sponsored Long-Term Ecological Research Program. Students will learn and develop skills as they interact and work closely with scientists from several disciplines on individual projects within the larger coordinated studies. To foster student development and monitor what careers they pursue after they complete the program, a 4-phase program is planned: an overview phase which explains integrated ecosystem studies, an apprenticeship phase to develop skills, a personal research phase, and an evaluation and follow-up phase. According to their interests, students will join a collaborating scientist for the second and third phases. The principal investigator of this award will coordinate the program, organize the overview phase, field trips, and seminars, integrating the students and collaborating scientists, facilitate progress toward independent questioning, and evaluating results. Students will be housed at the field station with other researchers, an arrangement that encourages after hours discussions and helps break the barriers between disciplines. The project will place promising students at a scenic research site with an interdisciplinary team of scientists to produce good science and develop an enthusiasm for biological research.